Deformations of hyperbolic 3-manifolds

Proposal: DMS-0072062

Abstract:
Professor Bromberg plans to study spaces of hyperbolic metrics on a fixed
3-manifold. Two types of questions will be investigated. The first of
these is a study of hyperbolic cone-manifolds. Finite volume
cone-manifolds arise naturally as a link between cusped hyperbolic
3-manifolds and closed hyperbolic 3-manifolds. Bromberg's goal is to
parameterize spaces of infinite volume hyperbolic cone-manifolds and use
this parameterization to understand non-singular hyperbolic structures.
The second question involves the topology of deformation spaces of
complete, infinite volume metrics on open 3-manifolds. Anderson and Canary
have shown that the space of such metrics on a manifold of fixed homotopy
type has a very complicated topology akin to that of the Mandelbrot set
studied in complex dynamics. In joint work with J. Holt, Bromberg has
shown that this complicated behavior persists even if the deformation
space is restricted to metrics on a 3-manifold of fixed homeomorphism type
generalizing work of McMullen. Complex projective structures naturally
appear in both of these topics. Bromberg also plans to study projective
structures with a given discrete holonomy representation.

This project lies in the field of low dimensional topology and geometry.
The main objects studied are three-manifolds which are spaces with one
more dimension than a surface (a 2-manifold). Three-manifolds,
such as the space that we live in, are some of the most basic
objects in mathematics yet there are many simple questions about them that
we cannot answer. A metric is a way of measuring distance on a 3-manifold
and a hyperbolic metric is one of a special class of metrics such that at
every point and in every direction the geometry locally looks the same.
The work of W. Thurston has shown that "most" 3-manifolds carry a
hyperbolic metric and earlier work of Ahlfors, Bers and others has shown
that an open 3-manifold that has an infinite volume hyperbolic metric will
in fact have many hyperbolic metrics. There is a vast program to
understand all such metrics of which this project is a piece.